Design and Manufacturing for Corrosion Fatigue Life

Corrosion fatigue failure and methods to develop life prediction schemes for this failure mode will be studied. The approach will be based on using the da/dN crack growth data to establish the stress-life curves in fatigue. Special attention will be paid to mean stress effects, rate of loading and long lives of relevance to power plants. The research will also aid manufacturing processes which produce different residual stress levels hence different material behaviors. Concepts of J-Integral will be used in handling crack growth both in the low cycle fatigue and high cycle fatigue regime.